Quantum Mechanical Studies of Interacting Modes in Molecular Systems

This three-year theoretical research project is jointly supported by the NSF Theoretical and Computational Chemistry Program and the Materials Theory Program. Theoretical models will be studied for the study of: (1) low temperature thermal and optical properties of glasses, and (2) optical and electronic properties and electronic and vibrational states of molecular aggregates. Topic (1) involves computer simulations to generate a large sample of glass structures using an empirical force field model. Each generated structure is searched for pairs of neighboring local minima on the potential energy surface with associated double well potentials (DWP). Tunneling contributions to low temperature specific heat, thermal conductivity and phonon-chromophore interactions will be computed using the statistical distribution of DWP parameters. Topic (2) is a quantum and statistical mechanical analysis of electronic-vibrational (phonon) coupling in molecular aggregates, chains, and polyatomic molecules. Theory will be compared with results of optical dephasing experiments on low temperature glasses. The overall goal of this research is to understand, and eventually to predict, optical and thermal properties of glasses and other disordered materials in terms of their atomic structure. At the atomic level, a glass lacks the regular periodicity of a perfect single crystal. This disorder requires that one take proper account of the statistical distribution of relevant structural features. In particular, there exist pairs of structures of nearly the same energy which can be converted one into the other by a concerted motion of just a few atoms with small adjustments by the many surrounding atoms. The double well potential is a mathematical representation of the change of the potential energy of the glass during this conversion process. The energy barrier is very small for some pairs of structures, and for these, interconversion motions persist ev en when the glass is cooled to liquid helium temperatures, where other atomic motions have been frozen out. Thus low temperature experiments allow one to study the effects of the tunneling motion free from complications due to other types of motion. Various measurable optical and thermal properties of the glass will then be computed from the computed distribution to test the theory.